ITR/SY: Blurring the Line between OSes and Storage Devices

Disk systems have long been a source of performance and management
problems, and they grow in importance as the years pass. Of particular
concern are the slow-to-improve mechanical positioning delays. To
address these problems, storage devices and host systems have abundant
resources and knowledge. Independently, engineers of both device
firmware and operating system (OS) software aggressively utilize their
local knowledge and resources to mitigate disk performance problems.
The overall goal of this research is to increase the cooperation
between these two sets of engineers, which will increase the
end-to-end performance and robustness of computer systems.

This research will develop a deep understanding of available device
and workload information and how it can be collectively exploited.
Exploiting this understanding in real systems will require more
expressive interfaces and new cooperative algorithms. Two concrete
examples to be explored are: (1) device-side specializations, such
as freeblock scheduling, that have access to system-provided
information about priority levels and forthcoming demands, and
(2) OS-side specializations, such as track-aligned extents, that
have access to device-provided details about physical data layout
and firmware cache algorithms. In addition, the insights generated
by this research will assist end-to-end education and thinking in
storage systems.